International Collaboration in Chemistry: Ionic Liquid in Confined Environments

Professor Yury Gogotsi of Drexel University is supported by the Analytical and Surface Chemistry Program in the Division of Chemistry to conduct research in an international collaboration with Professor Alexei Kornyshev of the Imperial College London. The goal of the collaborative project is to conduct experiments and molecular simulations to elucidate the molecular basis of surface charging and discharging in electrochemical capacitors with room temperature ionic liquids (RTILs). Energy storage mechanisms and current delivery dynamics, as well as the behavior of ions in nanoscale confinement will be investigated. Understanding the interaction between ions and nanostructured carbon surfaces is essential for the development of supercapacitors in electrical energy storage and harvesting applications. The research will provide students with training in materials science and computer simulation and expose them to an international research experience. The project is supported jointly by the NSF and the Engineering and Physical Sciences Research Council of the United Kingdom (EPSRC).